Building Bridges for Cooperation in Physics Education

ABSTRACT ESI-9453830 Teodoro Halpern Building Bridges for Cooperation in Physics Education Forty participants from the United States will attend the Fifth Inter-American Conference on Physics Education. These participants include 20 high school physics teachers and 20 physics faculty from 2- and 4-year undergraduate institutions. The goal of the conference is to build bridges for cooperation among physics educators in the Americas and Caribbean and extend networks which were established through previous Inter-American Conferences on Physics Education. The particular emphasis of this conference will better prepare teachers from the United States to teach students of the "emerging majorities". The conference design includes simultaneous translators at the conference and translation of the conference's papers from the original language. The papers will be grouped by grade level and published in booklet form for use by elementary, high school and university teachers. The conference will be held at Texas A&M University in College Station, Texas on July 17-22, 1994.